Modeling of Flare Physics for the MAX '91 Program

The physical understanding of the process of magnetic energy buildup, storage, and release in solar flares, as well as that of other processes related to the field evolution (particle acceleration, heating, etc.), improved substantially during the last solar maximum. However, improvements in instrumentation (largely in temporal and spatial resolution) since the last maximum now allow us to address some of the most fundamental issues of flare physics. The MAX91 Program requires simultaneous development of analytic and numerical studies as an aid in developing a complete physically realistic picture of the processes involved. Although the start of high solar activity during the next cycle is not anticipated until 1990, this grant for numerical modeling is supported now in order to carry out some preliminary studies that may influence, or provide guides for, some of the observations. For instance, specific observations may be identified which would provide clues as to the validity of a particular theory. In addition, although most of the numerical codes to be used in this work already exist and have been well checked out, some modifications and code development are necessary in order that the results can be directly compared to the observed quantities. With regard to this latter issue of data-theory compatibility, as part of this early start-up a significant effort will be made to interact with the applicable observation teams to better identify how the modeling effort can support the observations and vice-versa. The suggestion being that not only is it necessary to coordinate the observations, as noted in the MAX91 Report, but that a coordination of the observations and modeling and theory efforts would also greatly improve the scientific outcome during the next maximum. The theoretical and numerical research described in this grant has direct application to some of the generally recognized outstanding problems of solar flares. The primary processes that will be investigated are: (1) the energy release mechanism responsible for initiating and driving the solar flare and associated phenomena, (2) magnetic reconnection and its potential role in energy conversion, heating and particle acceleration, and (3) particle acceleration by nonlinear travelling waves. Numerical modeling forms the core of the theoretical approach to be used in studying these topics, although some analytic studies will be used for the second and third topics. A primary objective will be to relate the results to applicable observations. In particular, the results of the first study will be directly compared to observations from white- light coronagraphs, as well as to x-ray and H() data. The latter two studies have applications to x-ray, EUV, and H() data and to observations with particle detectors.